Modeling, Identification, and Control of Systems with Rate-Dependent Hysteresis

Hysteresis is a ubiquitous phenomenon arising in diverse
areas of engineering. In applications, it is closely linked to
energy dissipation, and it is associated with quasi-static
memory-dependent behavior. Many applications involve
rate-dependent hysteresis, which merges quasi-static hysteresis
with fully dynamic behavior, thereby yielding quasi-static
hysteresis as a limiting feature of dynamic system properties. In
the proposed research, we plan to develop differential models for
rate-dependent hysteresis and use these models for nonlinear
system identification and adaptive feedback control. The proposed
research will simplify and extend existing hysteresis models and
provide new techniques for identification and control of
hysteresis in diverse applications.